CPS: Small: Collaborative Research: Tumor and Organs at Risk Motion: An Opportunity for Better DMLC IMRT Delivery Systems

The objective of this research is to develop algorithms and software for treatment planning in intensity modulated radiation therapy under assumption of tumor and healthy organs motion. The current approach to addressing tumor motion in radiation therapy is to treat it as a problem and not as a therapeutic opportunity. However, it is possible that during tumor and healthy organs motion the tumor is better exposed for treatment, allowing for the prescribed dose treatment of the tumor (target) while reducing the exposure of healthy organs to radiation. The approach is to treat tumor and healthy organs motion as an opportunity to improve the treatment outcome, rather than as an obstacle that needs to be overcome.
Intellectual Merit: The leading intellectual merit of this proposal is to develop treatment planning and delivery algorithms for motion-optimized intensity modulated radiation therapy that exploit differential organ motion to provide a dose distribution that surpasses the static case. This work will show that the proposed motion-optimized IMRT treatment planning paradigm provides superior dose distributions when compared to current state-of-the art motion management protocols.
Broader Impact: Successful completion of the project will mark a major step for clinical applications of intensity modulated radiation therapy and will help to improve the quality of life of many cancer patients. The results could be integrated within existing devices and could be used for training of students and practitioners. The visualization software for dose accumulation could be used to train medical students in radiation therapy treatment planning.